Quantum Net Dynamics (Physics)

Theoretical physics research on a fundamental alternative to quantum field theory called Quantum Net Dynamics (QND) will be carried out. The net in question is a discrete quantum microscopic causal structure hypothesized for spacetime. QND is local, locally finite, locally relativistic and has a fundamental construct with the dimensions of time supposed to set the scales of times, energies, and lengths of high-energy physics. QND permits a quantum condensation that approaches Minikowski spacetime and the Dirac equation for times large compared to the fundamental time. The QND analogue of Feynman diagram calculational rules will be studied with an eye to practical high-energy particle calculations free of ultraviolet infinities. Quantum field theory is essentially the only known approach to practical calculations in elementary particle physics. Since quantum field theory does have its shortcomings, studies of alternatives, such as the study to be undertaken here, are valuable.